Travel to Attend: Eighth National Heat and Mass Transfer Conference in India; Visakha Patnam, India; December 29-31, 1985

International travel support is provided for attendance at the National Heat and Mass Transfer Conference in India in December. The main aim of this participation is to develop contacts for collaborative research in the area of multiphase flow heat and mass transfer. This is an area of increasing importance in the chemical process industry, and is receiving increased attention in the U.S. and in India. In addition to developing cooperative research, the principal investigator is chairing a number of technical sessions, and is conducting several workshops, all in fields related to his research interest.